Research in Geometrical PDE

Abstract for DMS - 0103160
PI: Jie Qing

The proposed project consists of two related research
topics. The first part is research in conformal geometry.
The second part is a continuation of the research of
formation and structure of singularity developed along
geometric flows. For conformal geometry part it takes surface
theory as the guideline of geometry in higher dimension. The
theory of conformally flat structure, in 4 dimension for
instance, has not been so successful because of the lack of
right analytic tools, in our view point. But it seems that
some replacement of complex analysis by theory of fourth
order PDE is found to be very promising to study conformal
geometry. Therefore the main thread in the part of this
proposed research is to further develop conformal geometry
with those newly developed analytic tools. The proposed
research takes a fundamental and comprehensive approach
to the study of conformal geometry. It will significantly
enhance and develop the conformal geometry. It will also
provide some ways to better understand topology in 3 and 4
dimension. For the second part of this proposed project we
continue our research in the study of formation and structure
of singularity developed along the heat flow for harmonic
maps from surfaces. It is always very interesting to
understand the behavior of the flow across the finite time
singularity. The better understanding of the finite time
singularity is believed to be very helpful in further
applications of the theory of harmonic maps in topology and
physics.

The development of conformal geometry has a very long
history and extensive literature. It is intimately tied with
modern physics as we have seen it in conformal field theory.
Particularly it becomes even more important as the correspondence
between quantum gravity and conformal field theory relatively
well understood in physics demands mathematical foundation, as
well as stimulates development in conformal geometry. Therefore
it is clear that conformal geometry is an exciting frontier of
modern sciences. Singularities naturally develop in many
mathematical models for almost everything in sciences. Singularity,
for instance, develop when some parameters in the physical system
approach certain critical values, like Ginzburg-Landau model in
super-conductivity and super-fluids. To study the singularities in
evolution systems have been the major problems in the theory of
partial differential equations with tremendous applications to
many physical and engineering fields. Any essential analytic
progress in this line will greatly attract attention from experts
in all related areas. At last, but not the least, the proposed
project is also generating research activities to the benefit
of the graduate program in the Department of Mathematics at UCSC.